Research Experiences for Undergraduates in Chemistry at Northern Arizona University

Professor Gerald Caple and other members of the Chemistry Department of Northern Arizona University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects include investigation of aniline copolymers, analysis of clays from prehistoric ruins, and monitoring of groundwater in uranium mining districts. Students will meet weekly to discuss their research progress and will also attend a weekly seminar on general interest topics, such as safety and careers opportunities. Students will make at least one oral presenation on their results and, in addition, will make a presentation at a national conference. The participants will be Native Americans.